CIF: Small: Robust Sparse Recovery for Highly Correlated Data

Most natural signals are inherently sparse in certain bases or dictionaries where they can be
approximately represented by only a few significant components carrying the most relevant
information. In other words, the intrinsic signal information usually lies in a low-dimensional
subspace and the semantic information is often encoded in the sparse representation.
Processing of such signals in the sparsified domain is much faster, simpler, and more robust
than doing so in the original domain, making sparsity an extremely powerful tool in many
classical signal processing applications. Recently, with the emergence of the Compressed
Sensing (CS) framework, sparse representation and related optimization problems involving
sparsity as a prior called sparse recovery have increasingly attracted the interest of researchers
in various diverse disciplines, from statistics, to information theory, applied mathematics,
signal processing, coding theory and theoretical computer science.

This research involves the analysis, development, and application of robust sparsity-driven
algorithms for already-collected highly-correlated data sets where signals often exhibit a high
level of joint-sparsity and rich correlation structure. Examples of such data include natural video
sequences, volumetric medical images, huge image database, hyperspectral imagery (HSI),
and raw synthetic aperture radar (SAR) signals. The research develops a novel unifying robust
sparse-recovery framework based on context-aware and observable data-adaptive dictionaries,
focusing on two classes of practical applications of sparse recovery: (i) Representative --
denoising, concealment, inpainting, enhancement; and (ii) Discriminative -- clustering, detection,
classification, and recognition. Recovery/Discrimination accuracy is greatly improved by taking
into account inter-patch spatial correlation, inter-frame temporal correlation, and by adapting
algorithms dynamically based on local signal contents as well as by maximizing the level of
discrimination within the sparse recovery process.